CISE Research Instrumentation: Augmented Reality and Interactive Distributed Physical Modeling

EIA-9986051
Jannick P. Rolland
University of Central Florida

CISE Research Instrumentation: Augmented Reality and Interactive Distributed Physical Modeling

The schools of Optics and Computer Science at the University of Central Florida will purchase Silicon Graphics computers that will be dedicated to support research in computer and information science and engineering. The equipment will be used for several projects, including in particular:

1. Augmented Reality
Build a framework for augmented reality visualization. The framework includes the development of 3D displays, including head-mounted devices; quantitative assessment methods for accuracy and precision of 3D rendered depth; physically based models of motion of virtual objects; registration methods for real and virtual objects; and statistical texture synthesis.

2. A Framework for Distributed Physical Modeling at Interactive Speed
Extend the framework developed previously for distributed physical modeling to study the effective utilization of non-homogeneous machine clusters and to provide data at interactive-speed to augmented and virtual reality systems.

3. Dynamic Environmental Features in Virtual Worlds
Develop algorithms for the dynamic generation of vegetation in virtual worlds. This will require the design of new level of detail management algorithms and lightweight communication protocols to maintain functionally.